Undersea Research Program for Teachers

Twenty secondary school science teachers selected from the area adjacent to Groton, Connecticut will carry out an undersea research project using deep-diving submersibles and other equipment provided by the National Undersea Research Program (NURP) and will subsequently implement a student research program in their own schools which will engage their students in scientific inquiry. This three-year program will begin in September, 1988 and conclude in May, 1991. During the academic year of year one, participants will; 1.) attend thirteen 3 hour lectures and seminars by visiting marine scientists 2.) identify, define and design research problems and hypotheses to be investigated and chosen in consultation with the NURP Director and Chief Scientist. 3.) Conduct a literature search; 4.) meet with scientists at NURP, and 5.) become acquainted with the nature and philosophy of science. During the summer of 1989 the participants will be involved in a six week summer institute on Long Island Sound. Seventeen days will involve on-the-water investigations including two days utilizing a NURP submersible. The remaining thirteen days will be devoted to laboratory experiments, sample analysis and computer entry of data. During year two participants will complete their investigations, reduce and analyze data, write a paper or prepare a poster session and plan for the transfer of their research experience into the classroom. During year three participants will implement a student research program in their own schools. In-school visits will be conducted by the staff to observe the student research program. The participants will report on and discuss their projects. Program participants will receive six graduate credits from Eastern Connecticut State University. This program allows the Teacher Enhancement Program the opportunity to observe an approach which will increase the participants' understanding of the nature of scientific inquiry and the ability of teachers to convey this understanding to students. Project Oceanology ant the National Undersea Research Program will contribute an amount equal to 66% of the National Science Foundation award.